Variable Stars

The Maria Mitchell Observatory on Nantucket Island has specialized in the observation of variable stars, specifically the careful measurements of the periods within which the stars become brighter and fainter. The data are supplemented by the Harvard University's collection of photographs, many taken in the last century. The long data interval allows detection of changes in the periods. These inform astronomers of actual changes in the stars due to their aging. The Observatory has attracted undergraduate students for many summers and some winters. The students help make observations and work on chosen stars as their projects. This grant is to continue the students' program. In the past, the student financial support has been only nominal, so that many of the best students could not afford a summer on the island. This grant is to continue the program of students' observations of variable stars and to expand and optimize it through the Research Experiences for Undergraduates Program. The Maria Mitchell Observatory commemorates America's first woman astronomer and has provided particular encouragement to women students. The Observatory is maintained largely by private funds. Emilia Belserene has been its director since 1978. In part due to her personal experiences, she is committed to ensuring that the women at the observatory will have opportunities to gain confidence in traditionally masculine activities.